The Removal of Flux Residues from Printed Wiring Assemblies

A key step in the manufacture of printed wire assemblies (PWAs) is the removal of flux residues from the PWA surfaces. This cleaning ensures the electrical performance of the PWA and adhesion of post-assembly coatings, facilitates testing and inspections of the assembly, and preserves the mechanical properties of the substrate. This cleaning is usually done using blends of chlorinated fluorocarbons, primarily CFC-113, and light alcohols, such as methanol. With the advent of the Montreal Protocol, the use of CFC-113 for mictroelectronics cleaning is being phased out. A possible cleaning alternative utilizes solutions of nonionic surfactants in the lamellar liquid crystal phase conformation near their phase inversion temperatures. These solutions exhibit ultralow interfacial tension against polar, nonpolar, and mixed contaminants (flux residue may be considered a mix of polar and nonpolar contaminants). This low interfacial tension allows rapid, spontaneous emulsification of the contaminants to occur when the surfactant and contaminant come in contact. The surfactant solutions exhibit low interfacial tensions against polar and nonpolar materials, hence their contact angle on PWA substrates will be very low, allowing rapid penetration beneath components. The surfactant solutions offer high solubilization capacity for flux residues, so that many boards can be cleaned without requiring regeneration of the cleaning solvent. This research includes both experimental and theoretical work to investigate the use of lamellar and micellar solutions of nonionic surfactants as replacements for CFC-113 based cleaners of PWAs. The work will focus on the development of both the theory of contaminant removal from PWA surfaces and the relationship between the microstructure of surfactant solutions and the parameters which control contaminant removal. The structure and composition of the surfactants, contaminant, and substrate, as well as the effects of chemical additives in the cleaning solution, will be related to the cleaning effectiveness. Lamellar and micellar surfactant solutions will be studied and the effects of solution additives on the fromation of these phases and their cleaning power will be evaluated. The controlling step in the removal of contaminants from PWA surfaces will also be investigated.